Integration of Biochemical Analysis Techniques into an Undergraduate Biology Curriculum.

In order to increase and modernize the Biology majors' expertise with biochemical instrumentation, a three-step project is being undertaken: . techniques of analytical chemistry are being introduced earlier into the Biology curriculum; . students are being exposed to more current and sophisticated techniques through the acquisition of a high-performance liquid chromatography system and ultraviolet-visible spectrophotometers; and . the Biochemistry laboratory course is being converted from a survey of biochemical reactions to a course that includes a significant exposure to modern biochemical techniques. Biology graduates who are familiar with these additional instrumental techniques are expected to have a deeper understanding of major issues in modern Biology and thus to be able to compete successfully for positions in graduate and professional programs of study and for employment opportunities.